International Research Fellow Awards: Gene Flow as a Constraint on Adaptive Evolution: A Test Within a Polymorphic Population of Lizards

0076183
Jordan

The International Research Fellow Awards Program enables U.S. scientists and engineers
to conduct three to twenty-four months of research abroad. The program's awards
provide opportunities for joint research, and the use of unique or complementary
facilities, expertise and experimental conditions abroad.

This award will provide Dr. Mark A. Jordan with support for eighteen months to work
with Dr. William Jordan at the Zoological Society of London in the United Kingdom.
They will study gene flow as a constraint on adaptive evolution, a test in a polymorphic
population of lizards.

Theory predicts that gene flow should constrain local adaptive evolution. The principal
investigator proposes to test this hypothesis using a population of Galapagos lava lizards
that is polymorphic for traits associated with locomotor performance. He will use
microsatellite DNA markers to determine the amount of gene flow within the population.
High levels of gene flow will suggest that natural selection must be severe to maintain
microgeographic variation in performance.

Dr. William Jordan and his colleagues at the Institute of Zoology have extensive
experience in the application of molecular techniques for the analysis of microsatellites in
natural populations. The principal investigator will also travel to Ecuador and will
involve students from there to help with his fieldwork. This research will benefit
ongoing conservation efforts in the Galapagos. This project will allow estimates of
population structure and effective population size: measures that are critical in making
informed management decisions.
***